Doctoral Dissertation Improvement Grant: Uncharted Territory: Human Colonization of the Siberian Mammoth-Steppe

ABSTRACT
ARC 0525828

This award supports dissertation research to examine museum collections from six Middle and Upper Paleolithic sites in Russia. The goal of the research is to better understand the processes of human colonization of the north through a better understanding of technological organization and landscape use. The focus of the research is on the Enisei basin, already intensively studies by Russian scholars who have contributed to the extensive archaeological collections in the museum of the Institute for Material Culture History, Russian Academy of Sciences, St. Petersburg, which will form the primary data for the project.